Development of a High-Resolution Photoelectron Spectrometer for the Study of the Electronic Structure of High Temperature Superconductors

This specialized beam line is under development at the Synchrotron Radiation Center, University of Wisconsin. The project includes the construction of a new, high-efficiency undulator based beam line on the storage ring, Aladdin, to be used to address the science and technology of high-temperature superconducting materials. The beam line will have higher angle and energy resolution capabilities than presently available in the United States, and will provide a complementary capability to the efforts now under development in France, Germany, and Japan. This beam line will be ideally suited for high-resolution photoelectron spectroscopic studies of high-temperature superconductors. The source will be a specially designed undulator. The radiation will be dispersed by a Wadsworth monochromator, with the grating being the only optical element in the photon path. The monochromatic radiation will impinge on a two-hundred and fifty micron size spot on the sample, which typically will be at low temperatures. The photoelectrons will be energy analyzed by a hemispherical capacitor analyzer with a position-sensitive detector on a goniometer. Completion on this beam line is anticipated for late 1993, and will be available to general users about one-fourth of the operating time for broader applications.